CPS:Medium: Towards Neural-controlled Artificial Legs using High-Performance Embedded Computers

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

The objective of this research is to develop a trustworthy and high-performance neural-machine interface (NMI) that accurately determines a user’s locomotion mode in real-time for neural-controlled artificial legs. The proposed approach is to design the NMI by integrating a new pattern recognition strategy with a high-performance computing embedded system.

This project tackles the challenges of accurate interpretation of information from the neuromuscular system, a physical system, using appropriate computation in a cyber system to process the information in real-time. The neural-machine interface consists of multiple sensors that reliably monitor the neural and mechanical information and a set of new algorithms that can fuse and coordinate the highly dynamic information for accurate identification of user intent. The algorithm is to be implemented on a high-performance graphic processing unit (GPU) to meet real-time requirements.

This project has the potential to enable the design of neural-controlled artificial legs and may initiate a new direction for research in and the design of prosthetic leg systems. Innovations in this domain have the potential to improve the quality of life of leg amputees, including soldiers with limb amputations. The proposed approaches seek to permit cyber systems to cope with physical uncertainty and dynamics, a common challenge in cyber-physical systems, and to pave a way for applying high-performance computing in biomedical engineering. Besides providing comprehensive training to undergraduate and graduate students, the investigators plan to introduce community college students to cyber-physical systems concepts in an interactive and engaging manner.